RUI-LTREB Long-term coral reef community dynamics in St. John, USVI: 1987-2019

In an era of growing human pressures on natural resources, there is a critical need to understand how major ecosystems will respond, the extent to which resource management can lessen the implications of these responses, and the likely state of these ecosystems in the future. Time-series analyses of community structure provide a vital tool in meeting these needs and promise a profound understanding of community change. This study focuses on coral reef ecosystems; an existing time-series analysis of the coral community structure on the reefs of St. John, US Virgin Islands, will be expanded to 27 years of continuous data in annual increments. Expansion of the core time-series data will be used to address five questions: (1) To what extent is the ecology at a small spatial scale (1-2 km) representative of regional scale events (10's of km)? (2) What are the effects of declining coral cover in modifying the genetic population structure of the coral host and its algal symbionts? (3) What are the roles of pre- versus post-settlement events in determining the population dynamics of small corals? (4) What role do physical forcing agents (other than temperature) play in driving the population dynamics of juvenile corals? and (5) How are populations of other, non-coral invertebrates responding to decadal-scale declines in coral cover? Ecological methods identical to those used over the last two decades will be supplemented by molecular genetic tools to understand the extent to which declining coral cover is affecting the genetic diversity of the corals remaining. An information management program will be implemented to create broad access by the scientific community to the entire data set.

The importance of this study lies in the extreme longevity of the data describing coral reefs in a unique ecological context, and the immense potential that these data possess for understanding both the patterns of comprehensive community change (i.e., involving corals, other invertebrates, and genetic diversity), and the processes driving them. Importantly, as this project is closely integrated with resource management within the VI National Park, as well as larger efforts to study coral reefs in the US through the NSF Moorea Coral Reef LTER, it has a strong potential to have scientific and management implications that extend further than the location of the study. Outreach activities will be developed to embrace graduate and undergraduate training opportunities in coral reef science, and a strong K-12 educational component will be designed to provide educational and research opportunities for children in California and St. John.